Travel to Assess Soil Erosion and Environmental Problems in Western China

Bill Sprigg
0224491
.Funds are requested ($22,721) to allow three U.S. scientists to participate
in the 12th Conference of the International Soil Conservation Organization
in Beijing, to help launch research under the Sino-U.S. Centers for Soil and
Water Conservation and Environmental Protection, and to participate in, and
report on, the opening ceremonies of the joint Centers in Yangling, China.
The principal investigator, the director of the U.S. arm of the joint
Centers, will also coordinate Centers' research plans with personnel in
other Chinese ministries and the U.S. Embassy, all of whom potentially play
important roles in determining the success of the Centers. The facilitator
for the Centers' Joint Organizing Committee and a remote sensing specialist
complete the trio. These funds will ensure participation of non-federal
representatives among a larger delegation of Federal agency staff
representing the Centers.